Fundamental Studies of Microlaser Behavior and Atom-Field Interactions in an Optical Resonator

9876974
Feld
This research program focuses on the continuation of the development and analysis of the properties of the microlaser. Emphasis will be placed on the quantum mechanical behavior of this fundamental atom-cavity system. Examples of properties that will be studied include the threshold behavior, the evolution of field statistics from nearly chaotic to sub-Poissonian, field and intensity correlation properties of the microlaser emission, intracavity photon statistics, and the relationship between microlaser behavior and conventional laser operation. The experimental efforts will be accompanied by in-house theoretical analysis and will include technical developments to enhance the performance of the microlaser system.